Luminescent Solar Concentrators Based on Semiconductor Nanorods

This award on solar energy research is co-funded by the Divisions of Chemistry,
Materials Research, and Mathematical Sciences of the Directorate for Mathematical and Physical Sciences. A collaboration of chemistry, materials science, and mathematics groups at the University of California - Merced will explore a new kind of luminescent solar concentrator (LSC), based upon alignment of semiconductor nanorods in a liquid crystalline matrix. The idea behind this approach is that aligned nanorods will be better able to couple incident solar energy, collected over a very large area, into small area photovoltaic devices. The team will use semiconductor nanorods and heterojunction nanorods to act as light collector/emitter, and will align these particles in an anisotropic, liquid crystalline matrix. The hybrid materials will be characterized by a number of analytical techniques, and the resultant materials will be modeled with sophisticated radiative transport methods. The young scientists working on this project will have the opportunity to work in an excellent interdisciplinary environment at this Hispanic-Serving Institution, the newest campus of the University of California system.

Despite years of effort, breakthroughs in solar energy technology have been slow in coming. This unique effort by an interdisciplinary group of a chemist, a materials scientist and a mathematician is taking a new look at an old design for solar energy collection and conversion -- using a large-area device to collect and transmit energy to a small-area photovoltaic energy converter. The basic idea is to minimize the cost and increase the efficiency of the expensive component (the photovoltaic device) by decreasing its area, without sacrificing the amount of light that would be collected in going from a large-footprint to a small-footprint device. In addition, to the broad impact that improved solar-energy conversion would have for society, the postdoctoral fellows, graduate and undergraduate students working on this project will benefit from receiving an interdisciplinary education. This will help prepare them for scientific careers solving other important socially- and technologically-relevant problems.